Nonlinear Diffusion Equations and Free-Boundary Problems

Title: Nonlinear Diffusion Equations and Free boundary problems
PI: Panagiota Daskalopoulos, Columbia University

ABSTRACT

This project concerns with the study of nonlinear elliptic and parabolic
equations and free-boundary problems, in connection with more complex problems of
differential geometry,includingthe Gauss curvature flow, the Ricci flow and the Weyl
Problem withnonnegative Gaussian curvature and with physical applications such as
thin liquidfilm dynamics and flame propagation.The first part of the project will
study thegeometry and regularity of free-boundary problems arising from the degeneracy of
quasilinear and fully-nonlinear geometric flows,such as the Gauss curvature flow with
flat sides or more general curvature flows including the Harmonic flow.
The understanding of such models of equations and free-boundary problems
may have significant geometric and even topological applications.
A different new line of research will study the regularity of solutions
ofdegenerate Monge-Ampere equations and related elliptic
free-boundary problems. Its main goal is to develop new techniques to
establish the optimal regularity in fully-nonlinear
degenerate elliptic equations. The proposed work is also motivated by
the well known Weyl problem with nonnegative Gaussian curvature.
The aim of the third part of the project is to study the connection
between the geometry and the regularity as well as the formation of
singularities in Stefan type free-boundary problems including also the
Hele-Shaw flow and free-boundary problem in flame propagation. The use
of the geometric aspects of the problems is crucial in the proposed
approach. The last part of the proposed activity will study the asymptotic
behavior of solutions of variousmodels of singular diffusion. In particular,
it will deal with the type II blow up behavior of maximal solutions of the two
dimensionalRicci Flow. These solutions correspond to complete Riemannian conformal
metrics on a non-compact surface.

This project links a wide range of active fields of mathematics, in
particular nonlinear partial differential equations, geometry and
classical analysis.The proposed research activity on the geometry and regularity of
degenerate nonlinear parabolic equations and free-boundary problems may
result to significant geometric and even topological applications. The
proposed research activity on Stefan type free-boundary problems is
closely relatedto various important physical models, including the propagation of the
premixed equi-diffusional flames in the limit of high activation energy.
The models of singular diffusion which will be studied
in this project arise in various
physical applications such as population dynamics, the kinetic theory of
gases and thin liquid film dynamics.
Students and postdocs will be trained as part of this project.
Special emphasis will be given to the
encouragement of talented femaleundergraduate students, graduate students and postdocs
to pursue a successfulcareer in mathematics or related sciences. New courses linking
PartialDifferential Equations and Geometric Analysis for graduate students will be designed
and implemented.